ERI: Advancing Thermomagnetic Materials and Devices for Efficient Waste Heat Recovery

More two-thirds of the energy produced in industry, homes, and nature is wasted as heat. If just 2% of this wasted heat could be used captured, it could be used to generate more electricity than all wind, solar, and tidal power combined. However, this wasted heat is considered "low-grade" because its temperature is not very high. Most current tools that turn heat into electricity do not work well with low-grade heat. Finding an inexpensive and efficient way to reuse low-grade heat could provide a reliable, steady power source. This project will create thermomagnetic materials and devices that generate electricity simply by repeatedly heating them up and cooling them down. It will then fine tune the materials to increase their efficiency for low-grade heat conversion into usable power. Finally, the project will train future workers by creating a new college course, supporting hands-on engineering projects, and conducting science activities for high school students.

This project will advance thermomagnetic materials and devices for efficient low-grade waste heat recovery by integrating rational design, materials fabrication, electromagnetic-field-assisted processing, characterization, and device demonstration. The project is based on the hypothesis that integrating new magnetic material compositions with their interactions with electromagnetic fields will open new doors for discovering high-performance thermomagnetic materials. The project will: (i) discover and design novel thermomagnetic materials with a desired combination of thermal, magnetic, and mechanical properties; (ii) elucidate electromagnetic field interaction effects to tune structure, magnetic domain alignment, and non-equilibrium composition; and (iii) develop new device concepts with state-of-the-art power and efficiency for low-grade waste heat recovery. The research will characterize magnetic, thermal, mechanical, and structural properties to establish structure-property-performance relationships and identify materials and device architectures that maximize power and efficiency. The resulting knowledge will advance the fundamental understanding of magnetic domains and thermal transport near magnetic phase transitions. The project will also train undergraduate and graduate students, engage students through hands-on research and design, and work with Rowan University’s Introduction for Students to Engineering (RISE) program to stimulate interest in energy technologies of the future..